SoCS: The Fourth Party: Improving Computer-Mediated Deliberation through Cognitive, Social and Emotional Support

This project will develop and evaluate software to support people engaged in online social deliberation, especially as it relates to dispute resolution and collaborative inquiry. The software will model and monitor deliberative processes skills while people are either in collaboration or involved in settling disputes. Applications will be in three domains that already support online conversations: 1) online dispute resolution (e.g., eBay and the U.S. National Mediation Board); 2) collaborative learning in open-ended inquiry learning environments; and 3) dialog and deliberation on civic and ethical issues. The project will scaffold situations, adding structure or focusing attention on social processes, support improvement of individual skills, and facilitate a. Wisdom of crowds that enables participants to produce improved results. This project involves faculty across five departments: legal studies, psychology, political science, computer science and education.

Intellectual Merit. This research advances social issues (collaboration, dispute resolution, and critical thinking) and computation techniques (online dispute resolution, argumentation and collaboration). It furthers research into building social communities, explores issues of coaching and collaboration and develops evaluation tools for measuring the effect of online support.

Broader Societal Impact. This project advances the understanding of online human-human communication. It will enable more people to access social deliberative tools, promote interest in discussion among more people and improve the quality of on-line disputes as well as collaborations. The project lays the groundwork for more intelligent communication in online communities, creates new understandings of the complexities of collaboration and produces new modes of synergistic online discussions.